CI -TEAM Demonstration Project: San Diego Cyber-TEAM

With partners from California State University San Marcos, Scripps Institution of Oceanography (SIO) at the University of California San Diego, California State Parks, San Diego County Office of Education, Imperial County Office of Education (ICOE), and middle schools in San Marcos and Vista Unified School Districts--both of which serve high populations of underserved students, this project will develop and implement professional development and classroom cyberinfrastructure (CI) learning experiences that incorporate access to visualization tools, collaboration tools, and open source applications and resources to enhance the learning of Earth systems in grade 6 science classrooms. The project team will study 6th grade science standards and match CI resources that provide opportunities to engage students in CI activities that make standards content "come alive." TechQuest modules will then be developed that leverage existing CI resources to provide learning objects (e.g., visualization tools, interactive games) suitable for 6th grade students, and Moodle sites will be created to support collaboration across classrooms implementing these learning objects. The implementing classroom teachers will also be supported by way of the Summer Cyber Academy, Collaborative Lesson Study experiences and Classroom Instructional Support components. This project will advance knowledge and understanding for how CI tools can impact learning and prepare students and teachers to be cyber-ready for the workforce.